Organization of the 1993 Optical Computing Topical Meeting, Palm Springs, CA March 16-19, 1993

Topics covered by this conference are: Optical interconnections and buses for computing; Optical and photonic computing systems, architectures, models and algorithms - digital or analog; Hybrid optical/electronic processors; Optical "neural" processors, including optical associative memories; Optical memory; Massively parallel architectures for optical implementation; Spatial light modulators and other devils for optical computing; Nonlinear optical phenomena of potential use in computing; Nonlinear optical, electro-optical, and opto- electronic components; Holographic and other passive optical elements for optical interconnections and computing; Miniaturization and packaging of optical computers; Areas of application of the above components and processors; Fundamental physical and computational properties relating to the capabilities and limitations of optical computers.